Broadband Network Infrastructure and Data Storage for Research and Education

9401124 Campbell This award provides support for an experimental, high-speed network infrastructure that would interconnect parallel systems, large-capacity secondary and tertiary storage devices, and muli-media workstations capable of supporting high-quality digital audio and video. The network architecture is based on a broadband ISDN backbone of Asynchronous Transfer Mode (ATM) switches and fiber optics links. A high-bandwidth, gigabit/second HIPPI network would interconnect an Intel Paragon distributed memory parallel system and a tertiary storage system. The research spans three basic areas: system software infrastructure for managing high-speed networks, data pre-fetching and staging policies for high- latency, high-capacity secondary and tertiary data stores, and information access and multimedia collaboration software.